Expanding the Biotechnology Education Program in the San Francisco/Oakland Bay Area

A program for training biotechnology technicians is presently operating at Contra Costra Community College, with articulation with Richmond High School. A Tech-prep grant funded internships at Contra Costra College and local biotechnology firms for high school students. This project proposes to assist science educators and scientists to continue preparing technicians for local biotechnology companies. A three week workshop for 48 teachers and 8 meetings during the academic year will be offered. Mentors will do two site visits and telecommunications will be used to implement the program. Funds are requested to assist with development of Dr. Rosen's biotechnology kit and curriculum and its implementation into many high schools with high minority enrollments.